Travel Support for Professor R.N. Iyengar

9505722 Lin This project is for the travel support to Professor R.N. Iyengar, to work at the Center for Applied stochastics Research at Florida Atlantic University on the topics of reliability of strongly nonlinear structures and systems under seismic excitations and stochastic modellings of earthquakes and other stochastic loads. ***